NSF/CBMS Regional Conference in the Mathematical Sciences-"Nonhomogeneous Harmonic Analysis, Weights, and Applications to Problems in Complex Analysis and Operator Theory"

The conference is to cover the topic of "Nonhomogenous Harmonic Analysis". The principal lecturer will be Sasha Volberg. He will show how the Bellman technique from the area of Operations Research can be modified to solve many difficult problems in the area noted. He will in particular address deep questions to Calderon-Zygmund kernels, Tb theorems, two weight problems, capacity problems, some questions in Quasi-conformal mappings as well as several other topics. The material will cover the topics in the most
general settings (i.e. R^n), non-regular measures, etc..